Adaptive Mechanisms for Parallel Simulation

This project will examine adaptive synchronization protocols that monitor the execution of the parallel simulator, and automatically adapt the simulator's execution to optimize performance. Adaptive mechanisms allow the underlying simulation system to achieve maximum performance, particularly for dynamically changing workloads that often arise in practice. These mechanisms can also simplify the development of parallel simulation software to the extent that some degree of performance "tuning" is automatically performed by the simulation system, rather than by the application programmer, who may not be an expert in parallel simulator performance. A protocol that uses memory allocation to control execution is proposed. A second problem that will be addressed concerns analyzing and defining suitable incremental state saving methods that are designed to execute efficiently with rollback-based parallel and distributed simulators. Both problems will be attacked using experimentation on implementations running on multiprocessor hardware, and analytic modeling techniques.